Pan-American Seminar and Workshop on Repair and Rehabilitation of Building and Bridges

This award is for a two-day Pan-American Seminar and Research Needs Workshop for Repair and Rehabilitation of building and bridges.

The Inter-American representative will exchange information and concepts, characterize long term solutions, create links and joint projects among the participating institutions and countries.

The major themes are: methodologies for evaluating and mointoring deteriorating existing structures and considering new materials and methods for repair and rehabilitation of structures